Project IMPACT: Increasing the Mathematical Power of All Children and Teachers

9454187 Campbell This is a two-year, $763,158 project to provide in-school support for 25 fourth-grade and 25 fifth-grade teachers in the schools where Project IMPACT has a K-4 research and implementation project being completed. This is an extension to fifth grade of an on- going, joint research and teacher enhancement project in elementary mathematics education implementation in urban school districts. The project has conducted intensive teacher enhancement for grades K-3 along with longitudinal data collection on students as they progressed from K through third grade. This project will continue the project to complete fifth grade with these students and their teachers. The project has a strong research component focusing on the issues performance and behaviors and beliefs related to mathematics. Cost-sharing is 31% of the NSF funding request.